Student Support for the Third Hutton Symposium

9423071 Walker This award will offset travel expenses of U.S.-based students attending the Third Hutton Symposium on the Origin of Granites and Related Rocks. The conference is designed for scientists with an interest in granites and related rocks, and will be held at the University of Maryland at College Park. Participants will be involved in oral sessions, poster sessions, and field trips.